Psychology Experimental Methods Lab

The objective of this project is to increase the quality of laboratory science education in psychology at Winona State University. The focus of the project is on instruction in experimental design and research methods with applications in the areas of learning, cognition and sensation and perception. The equipment requested will provide for a state of the art experimental psychology laboratory. The equipment includes a computer controlled operant conditioning system with eight student lab stations. This equipment will permit students to conduct experiments in a variety of basic learning processes. Also requested are twelve personal computers which will provide the means for conducting a number of experiments in perception, cognition and learning. The equipment will facilitate instruction by giving students first hand experience with a variety of experimental research methods in scientific psychology.